Modeling, Computation, and Analysis of Complex Liquid Crystal Systems and Transitions

Gartland
DMS-0608670

The investigator carries out numerical modeling of problems
in two important new areas of the physics of liquid crystals: (1)
mean-field theories for phases of biaxial and bent-core
liquid-crystal materials, and (2) numerical solution of
macroscopic models for the dynamics and statics of point defects
in liquid-crystal systems (in the absence or presence of fluid
flow). The investigator uses techniques from modern numerical
bifurcation analysis together with the theories of singularities
and bifurcations in the presence of symmetry to study the full
bifurcation and phase behavior of recent mean-field models for
biaxial materials, along with models that he and collaborators
are developing for the important new class of bent-core
materials. The investigator adapts and extends methods from
computational fluids with moving and deforming bodies ("moving
overset grid methods") to provide effective techniques to
accurately model challenging problems involving the dynamics and
statics of point defects in macroscopic liquid-crystal director
models, with application to surprising recent physical
experiments on defect-pair annihilation in capillaries filled
with a liquid-crystal material.

Liquid crystals are complex fluids that possess partial
molecular orientational order. They can be used to control
light, and this feature underlies many of their significant
technological applications. In recent years, new liquid-crystal
molecules have been synthesized that exhibit certain special
phases. These new phases are termed "biaxial," because they have
secondary ordering properties in addition to those of the more
common "uniaxial" materials. The liquid-crystal community has
high hopes for potential new applications of these new materials.
The theoretical and experimental study of biaxial liquid crystals
is at a relatively early stage. In this project the investigator
analyzes a mathematical model for such materials that
characterizes the bulk equilibrium state of the system and
associated transitions, as a function of control parameters such
as temperature. This study requires both mathematical and
numerical techniques. In addition, the investigator and
collaborators develop new models for the special sub-class of
"bent core" liquid crystals, which are of high current interest.
The merits of this work are two-fold: (1) validation of the
models and (2) the development of predictive tools to aid in the
design of experiments and in the identification of parameter
ranges for technological applications. The second main topic of
the project concerns the numerical modeling of the dynamics of
defects in liquid crystals (isolated singularities in the fields
that characterize the orientational properties of the medium).
Defects are ubiquitous in liquid-crystal systems, and they cause
considerable difficulty both from mathematical and numerical
points of view. The investigator and co-workers apply numerical
procedures from other areas of computational fluid dynamics, both
to model numerically a target problem involving the annihilation
of a pair of point defects in a capillary tube filled with liquid
crystal and to compare these numerical results to recently
published experimental data. These techniques (new to the area
of liquid crystals) should open the door to a number of other
numerical-modeling problems involving defects that have
previously been hampered by unphysical numerical artifacts.